U.S.-Brazil Cooperative Research: International Study on the Dynamics of Ionizing Collisions

0102243
Olson

This U.S.- Brazil Program award provides support for cooperative research between Dr. Ronald E. Olson, University of Missouri-Rolla and Drs. Geraldo M. Sigaud and Eduardo C. Montenegro of Pontificia University of Rio de Janeiro in Rio de Janeiro, Brazil in an international study on the dynamics of ionizing collisions.
This collaborative research project combines the theoretical expertise of Dr. Olson and the experimental expertise and resources of Drs. Sigaud and Montenegro to develop a better understanding of the fundamental subtleties of electron-electron and electron-ion interactions in fast heavy particle collisions. They will develop momentum spectroscopy techniques that are needed to understand the relative importance of interactions in atomic collision studies. The results of this research will allow the interpretation of very difficult charge exchange measurements and increase our understanding of many collision processes in nature, such as energy deposition processes in biological tissue, in health-related applications, in fusion energy development and in material science applications.